Collaborative Research: From Peaks To Slopes To Communities, Tropical Glacierized Volcanoes As Sentinels of Global Change: Integrated Impacts On Water, Plants and Elemental Cycling

In the inner tropics, glaciers are exclusively found of volcano peaks above unique Andean páramo ecosystems that serve as global biodiversity hotspots, harbor some of the highest carbon stocks per unit area on Earth and sustain local communities who have stewarded the land and waters for generations. Glaciers there are fast-disappearing, yet most studies on glacier retreat and downstream impacts are concentrated in mid- to high-latitudes. With Ecuadorian collaborators at academic, governmental, and community institutions, the project’s overarching research objective
is to determine the drivers for glacier retreat on critical Andean volcanoes in the inner tropics, triggering impacts on water supply, vegetation and land-use, and chemical feedbacks. To ensure benefits to local communities in addition application of research outcomes to the U.S. context, the approach includes co-production of predictive models of future change for those living at the mountain bases. Engagement with these communities will yield a framework for weaving together different understandings of earth systems–which is lacking in the Andes. At and around the U.S. home institutions involved in the project, the team will develop activities for local university science and high school students.

This project provides the first systematic investigation on glacier mass balance processes in the inner tropics, models the consequences of accelerated plant succession in deglacierized landscapes, and implements the first assessment of sulfur and metals controls on páramo carbon stores. Its interdisciplinary work plan will further uncover hidden subsurface flow paths of meltwater that influence the timing of stream discharge and the weathering and export of solutes; demonstrate complex feedbacks among plant succession, soil moisture dynamics, soil development, and nutrient release under environmental change and land management scenarios; provide spatiotemporally resolved hydro-biogeochemical process-understanding to determine whether vast páramo carbon stores will become a source of greenhouse gases to the atmosphere; and finally show how glacier retreat triggers responses that propagate throughout mountain catchments to affect water, plants, and elemental cycles. The project’s integrative approach combines field and remote sensing observations, laboratory analyses, computational modeling, and knowledge co-production with local communities. In addition to producing extensive multidisciplinary datasets and predictive integrative models in a data-sparse and fast-changing region of the world, centering local community engagement creates a novel opportunity for local knowledge to be in dialogue with conventional academic science, which can transform conceptualizations of earth science.